Dissertation Research: Settlement Organization and Sociopolitical Evolution in China

Watson Under the direction of Dr. Patty Jo Watson, Mr. Jimmy Railey will collect data for his doctoral dissertation. Mr. Railey has worked with Chinese archaeologists in the survey and excavation of archaeological sites in the southern Yuanqu basin, located in the middle Yellow River in China. The team has found a series of settlements which encompass both the Neolithic and early Bronze Age periods and thus document the emergence of complex stratified societies in this region. With National Science Foundation support, Mr. Railey will continue this work. He will participate in on-going excavations at three sites in the Basin and also conduct a survey of the surrounding area. Spatial analyses of the data he collects will provide information on the long-term trends in regional demography and settlement patterns. It will document changes in the size and internal organization of specific communities over time and shed light on the organization of production and distribution of ceramics. He will conduct a detailed analysis of ceramic materials recovered and also examine floral and faunal remains recovered from the sites. Archaeologists wish to understand how complex societies arose since these form the basic social structure within which we live today. To gain insight into the underlying processes involved, it is necessary to utilize a comparative method and examine a number of individual instances in which this transformation took place. Only in this way can general trends be separated from historical particulars. In this context the Yellow River region of China is extremely important because this was one of the independent cradles of world civilization. Mr. Railey works on sites which span this transition. The research will also provide data of interest to many archaeologists, further scientific cooperation between the United States and the Peoples Republic of China and help to train a promising young scientist.